US-France Cooperative Research: Quantum Chromodynamics and Hard Interactions in a Nuclear Environment

This award will support collaborative research in high energy theoretical physics between Dr. John Ralston, University of Kansas, and Dr. Bernard Pire, Center for Theoretical Physics, Ecole Polytechnique, Palaiseau, France. The investigators, who have a long history of fruitful collabora- tion, propose a new area for applying the fundamental theory of strong interaction physics, Quantum Chromodynamics, to high energy collisions with nuclei. The goal of such research is to learn from the comparison of theory with experiment, as well as to make theoretical predictions and suggestions for future experiments. Their method will extend their work on the phenomenon called color transparency, where they showed that Quantum Chromodynamics may in some cases be more cleanly tested and applied in a nuclear medium than with isolated particles. A parallel project involves the possible phases of nuclear matter in QCD. The investigators will propose a percolation-theoretic viewpoint, arguing that a color- conducting, but chirally-broken phase may have been observed in recent relativistic heavy-ion experiments. These studies in theoretical physics will benefit from the complementary expertise of the two investigators and should make a continuing contribution to this important field of research.